Workshop on Water Waves and Floating Bodies

The first annual workshop on Water Wave and Floating Bodies is to be held at MIT in January/February 1986. Travel support is provided for advanced graduate students and young investigators, with priority for attendees from abroad.